Development of Algorithms for Segmentation and Identification of Individual Trees in Remotely Sensed Images of Diverse Forest Canopies

Abstract

9808312
Warner

This project develops new algorithms to take advantage of high-resolution spatial, spectral and temporal data sets-images obtained by remote sensing of forests. This project has three objectives. First, a new "ground truth" forest plot in the rich, mixed mesophytic forest is located and mapped. Second, using state-of-the-art sensors, images of the ground truth plot are sampled to obtain imagery with very high spatial, spectral and temporal resolution. The goal of this part of the study is to collect data of unusually high quality and resolution in anticipation of the capabilities of future broad-area sensors. The third goal of the project is to evaluate the ability of existing and new algorithms to segment and identify individual tree canopies.
The ability to segment and identify individual trees from images obtained by remote sensing will, in turn, (1) permit improved forest community classification, (2) contribute to parameterization and validation of individual-based population and community models of diverse forest communities and their responses to global or regional environmental change, (3) aid in assessment of forest ecosystem health and changes in forest health, and (4) open new possibilities for bioprospecting for rare individuals of either detrimental or beneficial species of special concern.